Managing Evolution in Distributed, Heterogeneous Systems

Distributed, heterogeneous (DH) software systems are critical for
the operation of modern, globalized organizations.
Like all software, DH systems come under evolutionary
pressure as organizational needs evolve. Adapting DH systems to meet
changing needs in areas such as security is challenging:
Co-ordinated changes, made in different languages, and on different
platforms must still preserve type-safety, and must not increase
complexity and/or complicate maintenance.
This project investigates
enhancements to standards-based middleware (e.g., CORBA)
to support evolution.
We preserve and enhance the core IDL-based heterogeneous
philosophy of middleware. First,
interface-description language (IDL),
used to model the architecture-level interfaces of
components, is enhanced to support
modeling of the evolutionary changes made to a DH systems. Location
of changes, types and life-times of new information
to be created are all explicitly modeled in an
aspect-oriented style at the IDL level.
Code generation supports
a wide range of implementation choices to
realize these architectural change-models. All implementations
are fully inter-operable. Finally, change-models
and implementations can be "compononentized",
packaged up and added to existing systems. Like this research,
our educational plans also span
several topics areas, including functional programming,
object-orientation, and architecture. We
develop practically-grounded pedagogy on software evolution,
comparing the varying approaches to separation of concerns in
object-orientation, higher-order polymorphism (including
monadic programming), connectors, and aspects.